Nuclear Science Laboratory

This proposal makes the nuclear physics laboratory of WKU more functional by augmenting the currently available equipment so that (a) the nuclear physics laboratory is becoming a nuclear science laboratory; (b) students are being taught not only principles, but current methodology; and (c) undergraduate students are be involved in meaningful, productive and publishable research. //